Math Foundations in CS 1 & 2 for Less Selective Institutions

Computer Science (31)
By developing modules which integrate foundational mathematical concepts with computer science coursework, we will provide students with motivated development in the mathematics required for success in computer science. We are developing modules which students work with asynchronously at their pace; these modules directly tie mathematics to computer science problems. The modules assume only high school algebra, but will bring students to the maturity and knowledge level that they require in order to succeed. We are adapting peadagogical materials from "Crossroads in Mathematics" a report by the American Mathematics Association from the classroom environment envisioned in the report to our online, asynchronous approach; and curricular materials from two well-established sources: Gries and the Math-Thinking Group who have developed a heavily mathematics-based approach to computer science education and a text by Aho and Ullman, which emphasizes the mathematical modelling of computer science concepts. This project takes the mathematical material used in these approaches and ties it to the content of early computer science courses.